Adaptation, exaptation, and colonization in solitary Anolis lizards

The independent evolution of similar forms has interested researchers ever since Darwin. Three pathways--adaptation, exaptation ("preadaptation"), and genetic drift (random factors)--could potentially result in such convergence. The research proposed here aims to tease apart these factors in a well-studied group, the Anolis lizards, using a new estimate of evolutionary history based on DNA sequences and anatomy. At least 17 independent instances of solitary existence in species Anolis afford an extraordinary arena for studies of evolutionary convergence. The PI and his students will study the evolution of convergence in 'solitary species' living on islands. They will test for nonrandom patterns in traits and use established and new comparative methods to distinguish adaptive from exaptive explanations for shared similarities in these species. The researchers will also compare ancient evolutionary colonizations to recent invasions, and describe new species discovered during planned fieldwork.

This research will clarify the evolutionary processes that produce similar traits during evolution. It will also result in the publication of identification keys and descriptions of several new species, thereby facilitating conservation efforts in the regions where Anolis are found (many of which are established biodiversity 'hotspots'). The research will train graduate, undergraduate, and international students in taxonomic and evolutionary studies.